Implementation of a Virtual Control Room in the Integrated Science, Business and Technology Program

Interdisciplinary (99) Enhanced student learning is resulting from the creation of a Virtual Control Room through which students in the Integrated Science, Business, and Technology Program are gaining experience in process design and control. The project features adaptation of problem-based learning and small group cooperative learning. Students have the opportunity via simulation to monitor actual processes in Tissue Culturing to produce commercially important molecules, a bioprocess by which an economically viable biotechnology product is produced, and the manufacture of pharmaceuticals. The project is serving as a model for the integration of business concepts into science and technology courses and programs.